Design and Editorial Services (Task Order 100)

9543399 Linsky This award is to provide the National Science Foundation with editorial and data analysis services for the Fiscal Year 1995 report on arctic research. The report provides essential information in support of the requirements of the Arctic Research and Policy Act.